Hydrodynamic Stability in viscous, compressible flow

ABSTRACT

The principal investigator proposes several projects concerning
multi-dimensional stability of flows in compressible, viscous,
and reacting media. These include both shear flows of classical
hydrodynamic stability and compressive flows of shock wave and
combustion theory, the former exhibiting local symmetry parallel
to and the latter normal to the flow. The unifying mathematical
theme in these problems is the appearance of multiple length scales
corresponding to small-scale transport and large-scale convective
effects, with associated ``stiffness'' in the linearized perturbation
problem. This leads to interesting, nonstandard issues in spectral
and semigroup theory. At the same time, the inclusion of small-scale
transport effects is highly desirable from the point of view of physical
applications, which often occur at scales where these effects might be
expected to be significant.

The stability of regular flow patterns is an old and central topic in fluid,
gas, and plasma dynamics, deciding which (stable) patterns will typically
be observed, and which (unstable) are only mathematical and not physically
observable solutions. The transition from stability to instability
is of particular importance, since it usually signals the arisal of
alternative, more complicated flow patterns close to the original
(now unstable) one- this is a way to understand complicated flows
by the study of simpler and better-understood ones. Despite a large
and well-known body of theory on this subject, dating back to the late
1800's, there are still many aspects that are poorly understood, particularly
for compressive, viscous, or reacting flows. Here, we propose to study
several of these issues arising in compressible gas and plasma dynamics,
and in combustion, applications in which such usually-neglected effects
are of considerable practical importance. Our goal is, by including
these mathematically problematic terms, to move existing theory from
the qualitative to the quantitative regime, obtaining new information
of use to practitioners at the same time that we advance the mathematical
theory.